Studies of Ionospheric Variability and HF Radiowave Propagation in the Southern Polar Region

This award supports cooperative research on the variability of cosmic radio noise absorption in the southern polar region to be carried out by Prof. T.J. Rosenberg of the University of Maryland and Prof. Alberto J. Foppiano of the University of Concepcion in Chile. It appears that recent statistical results on the diurnal and seasonable variability absorption by the aurora in the southern hemisphere that radiowave propagation models need modification. Such models have been developed by Prof. Foppiano and this work will be directed toward refining and extending these models to a wider range of locations and conditions. The extensive data base on the radio noise absorption in the southern hemisphere compiled by the University of Maryland will be used during Prof. Foppiano's visit to the U.S. Further collaborative work including possibly establishing a joint experimental program at U.S. and Chilean Antarctic stations will be explored. By providing partial support for the Chilean scientist, this project fulfills the goals of the SDC Program.